Partial Funding for the Fifth International Conference on Integral Methods in Science and Engineering (IMSE98)

9800673
Bertram

This project supports graduate student and junior researcher participation in the Fifth International Conference on Integral Methods in Science and Engineering (IMSE98) which will be held August 10-13, 1998 at Michigan Technological University, Houghton, Michigan.

The invited speakers:

Gregory Beylkin (University of Colorado, Boulder, Colorado), Archie G. Gibson (University of New Mexico, Albuquerque, New Mexico), Glenn R. Ierley (Scripps Institute, San Diego, California), Sangtae Kim (University of Wisconsin, Madison, Wisconsin), M. Zuhair Nashed (University of Delaware, Newark, Delaware), Jean Claude Nedelec (Centre de Mathematiques Appliquees, Palaiseau, France), Brian Sleeman (University of Leeds, Leeds, United Kingdom),

Will discuss numerous rapidly evolving areas of Integral Methodology. Since such techniques embrace a wide variety of scientific disciplines, conference participants will have many opportunities to broaden established research programs, as well as obtain an introduction to a wide range of fields employing integral methodologies. Since this is truly an interdisciplinary meeting, there will be many opportunities for technology transfer of state of the art integral methods to and between the different applied sciences and engineering. In addition, this conference will provide the opportunity for young scientists to meet, listen to, converse with, and learn from more seasoned researchers.